Laboratory Improvements for Teaching Instrumental Analysis

The goal of this project is to improve the teaching of Instrumental Analysis by use of an integrated approach and state-of-the-art instruments which typify contemporary research in the chemical sciences. The introduction of the use of modern Gas Chromatography/Mass Spectrometry (GC/MS) and Fourier Transform Infrared (FTIR) techniques will be made possible by teaching students the fundamentals of instrumentation with computer aided instruction followed by hands-on experience in a series of four subdiscipline laboratory courses. This ILI award from the Chemistry Shared Instrumentation Program will help the Department of Chemistry at the University of Washington to acquire GC/MS and FTIR instrumentation that will be used to enhance undergraduate laboratory instruction.